The Crucial Ingredients for Cryptographic Protocols

Recently some very general results have been obtained in the field of cryptographic protocols. These results depend on the available of a generous amount of computational resources. Professor Micali intends to deepen our understanding of cryptographic protocols by distilling the resources sufficient for their secure execution.